Mathematical Sciences: Planning an Activity--Based Introductory Statistics Course for all Undergraduates

This project will support planning an activity-based statistics course for undergraduates that draws from recent experiences at the secondary level and in industry, where statistics has been made relevant by focusing on the analysis of data of interest to the participants. A laboratory-type course will be planned that emphasizes modern data analysis and graphical techniques, student projects, case studies, technology, and innovative teaching practices that treat statistics as a laboratory science. It is expected that the project will provide model data analysis lessons, resource reviews, and a network of contributors and potential users so that a laboratory-type course in statistics can actually be written and implemented. Through its advisory committee, this planning project will be connected to other major efforts designed to improve the teaching of statistics across the country.